DHHS Program Support: Task Order 7 (Contract # 282-97-067) for FY 1998 PAESMEM Symposium

Administrative and logistical support for the PAESMEM Symposium to be held on September 10 and 11, 1998 in Washington, D.C. at the Sheraton ITT Luxury Hotel. The PAESMEM program is supports the presidential awardees for SMET mentoring. The awardees will have an opportunity to discuss successful mentoring practices with each other research and education experts at various educational levels.